Presidential Faculty Fellow

This award supports mathematical research into problems related to linear and nonlinear partial differential equations arising in Riemannian geometry. The work follows two main themes. The first is concerned with the spectrum of the Laplace operator on compact manifolds and boundary value problems for the scalar curvature equation. The main thrust of the research is the formulation and resolution of the Yamabe problem for manifolds with boundary. The problem has been solved for manifolds without boundary; the presence of a boundary requires a much more imaginative approach. At this time, the formulation of the correct questions is only being developed. Good results in 3, 4 and 5 dimensions have been obtained in the case of Riemannian manifolds. Work with a more geometric flavor will be done on uniqueness questions for conformal deformation of metrics. This will extend a recent generalization of the theorem that any Riemannian manifold which supports a function whose Hessian is a multiple of the metric and whose normal derivative vanishes on the boundary, must in fact be the upper hemisphere of the standard sphere. Partial differential equations form the backbone of modern differential geometry. Phenomena which involve continuous change such as that seen in motion, curvature and higher dimensional analogues are known to obey certain general laws, expressible in terms of the interactions and relationships between partial derivatives. The key role of mathematics is not to state the relationships, but rather, to extract qualitative and quantitative meaning from them and validate methods for expressing solutions.